Conference Support and Sponsorship for The 2001 International Semconductor Device Research Symposium (ISDRS'01) to be held in Washington, DC, December 5-7,2001

The sponsorship and funding of the Division of Electrical and Communication Systems (ECS) of NSF, is requested to partially support the International Semiconductor Device Research Symposium (ISDRS'Ol), December 5-7, 2001, in Washington DC. NSF has been a valued sponsor in the past (ISDRS'99). The Symposium is encouraging student participation and provides a highly interactive international forum for engineers, scientists, and students in the areas of advanced materials for devices, novel semiconductor devices, and processing technologies. We propose to use the funds to partially support student and faculty participation (partial travel reimbursement), symposium supplies and printing, and plenary speaker stipends. The sponsorship, participation and endorsement of NSF is invited.